High Resolution Brunhes Age Geomagnetic Paleointensity Record from the Sulu Sea: Towards a Millennial-Scale Global Stratigraphy

Funds are being provided for a high-resolution geomagnetic paleointensity study of U-channel samples from ODP Leg 129, Site 769 in the Sulu Sea. A pilot study confirmed the exceptional magnetic quality of these sediments and demonstrated that the site is free of drilling-induced mangetic overprint or storage diagenesis that effects paleointensity. Samples also preserve millennial scale record and have excellent stable-isotopic stratigraphy. The study will allow a detailed understanding of the temporal evolution and high-rgrequency variability of geomagneic paleointensity record of the Brunhes age.